CONFERENCE: Request for a Travel Grant for the XXVI International Ethological Conference to be held in Bangalore, India, 2-9 August, 1999

Animal Behavior Program
Nontechnical Abstract

Proposal #: 9816433
PI: H. Carl Gerhardt
Title: Request for Travel Grant for the XXVI International Ethological Conference to be held in Bangalore, India 1999

This request is to provide support for up to 14 young scientists that would help defray the costs of attending the XXVI International Ethological Congress. This is the most important international ethological meeting held. It will attract participants from all over the world. In the past this conference has been extremely well attended and successful.
Attendance at this meeting will be very beneficial to the young scientists who otherwise would be unable to participate in this international gathering. Contacts for future international collaborations will be made and interchange of ideas will occur.